Analysis of Vibration-Assisted Liquid Composite Modeling

9414786 Ayorinde This project is to provide the theoretical analysis of the role of vibration assistance in the liquid molding of composites manufacturing process. It is complementary to a new experimental program being funded by the Automotive Composites Consortium. Vibration assistance has the potential to improve a basis for optimization. This project should assist in providing a better understanding of the role of vibration assisted manufacturing in general and the liquid molding composite fabrication process in particular. ***